Improvements at Las Cruces Biological Station to Enhance Tropical Training and Research

The Organization for Tropical Studies, Inc. (OTS) has three biological field stations in Costa Rica that are used by a broad spectrum of the international scientific community; La Selva (wet lowland rainforest) is developed and well along the way to achieving its training and research potential; Palo Verde (seasonally dry lowland forest) is a diamond is the rough with primitive facilities that have been stressed beyond capabilities to service the demand -- so upgrading activities are underway here; and Las Cruces (we mid- elevation premontane rainforest) did lie somewhere between the above two stations in terms of infrastructure, but suffered a disastrous loss of buildings, equipment and supplies when fire struck on the evening of November 23, 1994. This loss has come at a particularly critical time in the development of the Las Cruces station as it struggles to accommodate the demand by courses and researchers, particularly those interested in highly diverse mid- elevation ecosystems that are most heavily preferred and used by human populations. The recent surge in activity by conversation biologists, foresters, and agroecologists has added a sustainable development dimension to the traditional by systematists and ecologists. Because of the importance of this station on the regional, national, and international scene, plans are underway to streamline and rebuild the station. This project will support activities to: 1) remodel an existing house to replace some of the capacity that was lost for accommodating groups of students and researchers; 2) refurbish the general-purpose laboratory that survived the fire; 3) construct a number of spatially separated buildings to replace the balance of what was lost in the fire (viz. long-term researcher housing, research laboratory, and a general services building that will house the kitchen, dining room, office, supply room and laundry); and 4) replace the lost equipment and supplies. Like the rise of the phoe nix from the ashes, Las Cruces has taken this calamity as a challenge and is making the most of a sad situation to develop a sound and frugal plan for its resurrection. OTS is seizing on this opportunity to tailor the new facilities to the user's needs.